Radar Studies of the Excitation and Propagation of High Latitude Atmospheric Gravity Waves

The HF radar at Goose Bay Labrador, was originally built and used to study processes relating to electron density irregularities in the E and F region high latitude ionospheres, and to study the high latitude convection. It has recently become apparent that the radar can also be used to study problems relating to HF transmission which arrive reflected obliquely from the ground at large distances. These include traveling ionospheric disturbances (TID's) which are excited by propagation gravity waves. This proposal plans to study the excitation and propagation of these high latitude gravity waves in order to understand one form of energy coupling between the solar wind/magnetosphere and thermosphere. They also propose to develop and achieve a data base of observed gravity wave events.